Geometry, Analysis and Topology under Curvature Bounds

Abstract

Award: DMS-9971833
Principal Investigator: Guofang Wei

This proposal is concerned with the effect of Ricci curvature and
integral curvature bounds on the local geometric structure and
global topology of a Riemannian manifold.
The principal investigator will study
(i) deformation of metrics to positive sectional curvature,
(ii) optimal bound of isoperimetric constant,
(iii) the structures of the fundamental groups for manifolds with
pointwise or integral lower Ricci curvature bound, and
(iv) structures of manifolds with bounded weak norm.

Geometric objects such as manifolds appear naturally in science
and engineering, as configuration spaces, as Einsten's model of
universe. Ricci curvature is a fundamental concept in Einstein's
general relativity. Thus the fundamental research in these area
should not only be important in its own right but also should
have implications in science and engineering.